U.S.-Brazil Cooperative Science Program: Making Maps of theLow-Frequency Sky Brightness (Galactic Emmission Maps at Long-Wavelength)

This award form the U.S.-Brazil Cooperative Science Program will support collaborative research in atmospheric sciences to be carried out by Dr. George F. Smoot of the University of California, Berkeley and Dr. Thyrso Villela of the Instituto Nacional Pesquisas Espaciais (INPE) at San Jose dos Campos, Brazil. The project will map the southern sky as part of a program to make high quality maps of galactic emission. This collaboration combines the acknowledged expertise of he Berkeley group in studying cosmic background emission with the access to territory and high gain equipment afforded by the Brazilian side. The project will make spectral measurements of the differential and absolute sky brightness over the 400 to 1000 MHz range first with 15 to 10 degree angular resolution and then at higher resolution. These measurements will study the spectrum of galactic, extragalactic and cosmic radiation. The study will provide the basis for the next generation of high-precision measurements of the very low-frequency spectrum of the cosmic microwave background radiation (CMBR) and allow the reinterpretation of low-frequency CMBR spectrum measurements made over the past decade. ***//